Reception for Women Chemical Engineers at the AIChE Meeting in San Francisco, November 6, 1989

The problems of human resource development are of high priority at this time for Engineering. Efforts to encourage women, minorities and the handicapped to choose careers in engineering are needed. This grant is to provide funds for a reception for women in chemical engineering to be held at the 1989 annual American Institute of Chemical Engineers meeting in San Francisco, CA. The purpose is to give women a chance to meet and discuss issues of common concern. The reception is open to all who are attending the meeting. A product of the meeting is a list of all female faculty members in the US, a list that is circulated and should help open lines of communication.